Lab Research Experience for Undergraduates in Developing Materials and Structural Components Used in Small-Scale Models

The School of Civil Engineering and Environmental Science at the University of Oklahoma is establishing a REU site with a special focus on the development of enhanced materials and structural components used for small-scale modeling. Three laboratory projects have been identified for the program: the design of improved micro-concrete mixtures, bond strength of deformed small- scale reinforcing bars in micro-concrete, and small scale modeling of base isolation systems. All three projects improve the capabilities of small-scale models used to investigate the seismic performance of new or existing structural systems. Students will be divided into three equal size groups. Each group will work on one project for two months. This REU site will provide a "total" experience to the participants: learning, research, report writing, and presentation.